U.S.-Australia Cooperative Research: Talking Maps - Tactile-Audio Maps and Graphics for the Blind and Visually Impaired

This award will enable Dr. Reginald G. Golledge of the University of California, Santa Barbara to conduct research in Australia for six weeks. Dr. Golledge will collaborate with Professor Donald Parkes of the Institute of Behavioral Sciences at the University of Newcastle on the development and production of "talking maps", for use by people with impaired vision, and to establish a program of experimental research on the problem of navigating without sight. The Australian group has considerable expertise in the area of "talking maps", and is pursuing related projects in the fields of navigation without sight. This award will facilitate the completion of some aspects of collaborative research aimed at finding replacements for maps based on the sense of touch, and on development of methods to actually produce a "talking map."